Dynamics and Elasticity of Myosins

The transduction of chemical energy into mechanical work by muscle actomyosin in situ is thought to involve the interaction of magnesium ATPase with crossbridges of myosin which cycle through steps of being bound to and then free from actin. It is widely held that while bound to actin, a crossbridge dissociates the ATP hydrolysis products and undergoes a structural change that produces force. The many crossbridges in a muscle sarcomere operate asynchronously and the force generated by an individual actomyosin is thought to be transiently stored in an elastic component of the crossbridge. Dr. Highsmith plans to obtain additional data on the structures of muscle myosin crossbridges which will test the hypotheses that the crossbridge portion called subfragment-1 (S1) bends, by rearranging its constituent tertiary structural domains and generates force, and that its structure is reversibly distorted in order to store the mechanical energy involved. The primary technique to be used is transient electrical birefringence in which a solution of S1 is subjected to an electric field pulse of adjustable strength and duration. The motion of S1 under the influence of the electric field and its rate of field-free rotation will provide much needed structural information.